Workshop on Teaching Design Skills; Atlanta, Georgia; March 16-17, 1992

The workshop will focus on teaching design skills. It will bring together a small group of experienced design teachers, practitioners, and researchers to examine design teaching in a range of disciplines, such as engineering, architecture, and computer science. The goals are to clarify how specific aspects of design teaching are cross-disciplinary or domain-specific and to gather techniques, tools, and materials that can be used in a multidisciplinary undergraduate course in design skills.